CNSF Smart Node Program (MRI)

This project supports a workshop for Historically Black Colleges and Universities (HBCU's) Smart Node consultants to the Cornell National Supercomputer Facility (CNSF). The CNSF Smart Node program is a consortium of more than 70 institutions nationwide that distribute supercomputing expertise, support and training to researchers and students at their home institution. The primary goals of the program are to provide readily available consulting and training for researcher who access the CNSF's facilities from remote institutions and to involve participating institutions in the development of programs that address their supercomputing needs. These goals are met through the combined efforts of the Theory Center Staff, the CNSF and the Smart Node institutions. This project includes an initial training workshop and support for one of the annual Smart Node consultants meetings. There will also be special regional meetings at several of the HBCU institutions. COntacts between the HBCU's and members of the Theory Center's Corporate Research Institute and its industrial partners will be initiated for the development of student internships and to stimulate interactions with faculty.